Finite Element Approximation of Partial Differential Equations

The first area of proposed research involves the study of compatible
discretization schemes for partial differential equations, an approach that
attempts to produce numerical approximations that inherit or mimic
fundamental properties of a partial differential equation, such as
conservation and symmetries. Several problems, modeling phenomena in
elasticity and fluids, will be studied from this point of view. The new
approach taken is based on the construction of piecewise polynomial exact
elasticity sequences, which are closely related to the development of stable
mixed finite element schemes. Other work in this area includes a new
approach to the construction of hierarchical bases for scalar and vector-valued
finite element spaces in arbitrary space dimensions, and exact sequence
properties of rectangular and quadrilateral finite elements and their applications to the
stability of mixed finite element approximation. The second area of
study is the approximation properties of several types of finite element spaces
defined on irregular hexahedral elements obtained by trilinear mappings from a
reference cube. Such spaces are used to approximate three-dimensional vector
functions and arise naturally in many applications, including the
approximation of Maxwell's equations and the use of mixed and least squares finite element
methods for second order elliptic equations. Although it is often implicitly
assumed that approximation results known for regular hexahedrons extend to
these spaces, in fact this is not the case. The research is to determine
precisely what is needed for optimal order approximation and construct
families of finite element spaces that have this property. The third
area of research is to study convergence rates for discontinuous Galerkin
methods for linear hyperbolic problems. Although optimal order convergence rates are
often seen in practice, the theory guarantees such rates only for uniform
meshes, while a lower rate is known to be the best possible on specially
constructed meshes. The proposed research is to classify the type of meshes
for which the optimal convergence rate is achieved.

Mathematical modeling of physical and biological processes using partial
differential equations has become the standard method of studying a host of
important problems. Such models capture in a concise and precise way the
fundamental features of the process being modeled. Unfortunately, the
resulting equations rarely have solutions that can be expressed by simple
mathematical formulas. Hence, the development of reliable and efficient
numerical approximation schemes are necessary to make this method into a
practical approach and is central to progress in many areas of science and
engineering. Part of this development involves the investigation of the
theoretical underpinnings of numerical methods. Such investigation can lead
to a greater understanding of existing methods and to the development of new
methods with desirable properties. Thus, such study has the potential to
improve the accuracy of, or even make possible, essential computer
simulations performed by scientists and engineers. This project is concerned with the
study of numerical methods for approximating equations modeling phenomena in
elasticity and fluid flow. One central theme is to develop approximation
schemes that preserve discrete versions of some of the fundamental
properties of the mathematical model, in order to more accurately capture the
fundamental features of the underlying process being modeled.